Experimental Research in Elementary Particle Physics

This award supports experimental particle physics research using the CMS experiment at the Large Hadron Collider (LHC), addressing fundamental questions including the origin of dark matter and the nature of matter, energy, and cosmic evolution. The project advances the NSF mission by promoting scientific progress and developing broadly impactful technologies in data science, advanced computing, and artificial intelligence. It supports training of students and early-career scientists through research in advanced instrumentation and modern analysis methods, with broader impacts strengthened through NSF QuarkNet and REU outreach programs that expand access to research and help develop the national scientific workforce. A central component of the work is the development of innovative data acquisition, trigger, detector, and analysis techniques that enable study of previously inaccessible physics processes. Advanced selection methods extend CMS sensitivity to rare signals, while new detector and trigger technologies for the High-Luminosity LHC improve data completeness by imposing less stringent selections on recorded collisions. Rutgers University has established leadership in these areas through data-driven approaches that expand discovery potential.

The Rutgers University CMS group conducts a broad program of searches for physics beyond the Standard Model, emphasizing low-mass, rare, and unconventional signatures. These include low-mass and high-mass resonances, inclusive multiple lepton signatures, flavor-violating processes, long-lived particles, hidden-sector signatures such as soft unclustered energy patterns, and third-generation final states involving tau leptons and bottom quarks. The group has established leadership in Scouting and Parking data streams, which preserve high-rate event information at reduced granularity and extend sensitivity beyond conventional trigger-based acquisition, enabling access to otherwise inaccessible signatures. Machine learning is a central pillar of the program and is used throughout triggering, reconstruction, and physics analysis. Methods include particle identification, heavy-flavor tagging, anomaly detection, background modeling, and real-time event selection. Rutgers plays a leading role in integrating these techniques into CMS workflows, improving sensitivity for both targeted and model-independent searches for new phenomena. The group also plays a leading role in the High-Luminosity LHC upgrade. Contributions include construction and commissioning of the CMS Outer Tracker and development of Level-1 trigger systems using hardware tracking, fast jet reconstruction, and machine-learning-enhanced decision algorithms. A long-term goal is integrating Scouting-style analyses at Level-1, enabling high-rate, minimally filtered data collection through machine-learning-based reconstruction and selection. Together, these efforts expand CMS discovery reach and establish a unified framework combining advanced instrumentation, machine learning, and data acquisition for the HL-LHC era.